MRI: Development of a Non-Contacting Ignition System for Polymer Combustion Studies

OIA-0116554
PI: Chen
Abstract

Funding is requested for the development of a non-contacting ignition system for polymer combustion studies. The system will consist of a high-power lamp and associated optics, a pyrometry system for measuring surface temperature, and a heat flux sensor to monitor the uniformity of the heating system. A supporting numerical model will also be developed to validate the system. The ignitability of plastics as determined by this system should be extendable to other geometry, energy input and oxygen level through a suitable analysis.